Ion Implantation to Reduce Wear on Polyethylene Prosthetic Devices

The purpose of this fundamental engineering research is to modify the surface of a polymer material, so that the material will have a surface which is significantly more wear resistant than present materials made from polymers. The surface will be altered by bombarding it with ions from different atoms such as: neon, titanium, aluminum, chlorine and fluorine. The altered polymer materials will be tested for changes in surface hardness, coefficient of friction and wear resistance. If this technique is successful a new generation of polymer implants could ensue.